Interactions of Elliptic Cohomology with Other Subjects

Abstract

Award: DMS-0504539
Principal Investigator: Nora Ganter

The project investigates the interaction of elliptic cohomology
with other areas of mathematics and physics, with a focus on
equivariant phenomena and power operations. Subjects treated
range from orbifold models in string theory over representation
and character theory in 2-categories to generalized Moonshine and
stable homotopy theory. Hopkins-Kuhn-Ravenel character theory
arose in the context of homotopy theory and exposes many formal
similarities between the above fields. The goal of the project
is to better understand the mechanisms underlying these
observations. Power operations in elliptic cohomology were
already linked to product formulas in string theory and to the
twisted Hecke operators of generalized Moonshine. This project
will further pursue these connections, aiming to clarify the
links between the literature in these three subjects.

In less technical terms: Elliptic cohomology is a rich mix of
areas of mathematics and physics, which on the surface do not
appear to have much to do with each other. Especially in the
presence of an action by a group of symmetries, one can observe
many analogies between seemingly unrelated research areas. With
collaborators from various fields of mathematics, this project
seeks to find an explanation for the deeper mechanisms underlying
these phenomena.